Chemical Monitoring Using Capillary Separations

This work, directed by Assistant Professor Robert T. Kennedy of the University of Florida, is centered on problems of qualitative and quantitative measurement of chemicals associated with neurotransmission processes in the central nervous system. Support is provided by the Analytical and Surface Chemistry Program in the Chemistry Division. Miniaturized sampling systems coupled to capillary separation techniques will be developed with the long range goal of high speed in vivo measurements. Both microdialysis and push-pull perfusion will be investigated as sampling systems. On-line chemical derivatization will yield products suitable for laser induced fluorescence detection or electrochemical detection. The latter uses the biuret reaction to form Cu(II) complexes with peptide neurotransmitters. To enhance sensitivity, a dual electrode detector arrangment will be used in which the complex recycles back and forth between the anode and cathode. An understanding of the chemical basis of the functioning of the nervous system would be of great benefit in the treatment of neurological diseases. To achieve this, it is necessary to identify and quantify the chemicals involved and to be able to follow their changes temporily and spatially. The major objective of this project is to provide solutions to the measurement problems presented by the small volumes, the low concentrations, the presence of a large number of different chemicals and the short response time that are encountered in such investigations.